Performance Assessment and Performance-Based Design Metholodogy for Composite Construction with Application to Concrete-Filled Steel Tube Structural Systems

In recent years, performance-based seismic design methodologies have been developed with increasing success for steel, concrete, masonry, and timber structures. However, there are few performance-based design guidelines in the U.S. for composite steel/concrete structures. This proposal outlines research on establishing a methodology for performance-based design of composite structures. To focus the work, the research will apply specifically to frames incorporating concrete-filled tube (CFT) beam-columns. In performance-based design, critical force and deformation design parameters are used to quantify building performance for an anticipated seismic hazard level. The primary objectives of this research are: 1) assess seismic demand in composite CFT frames through a set of parametric frame analyses; 2) consolidate worldwide test results in CFT beam-columns, connections, and frames, and use these results to assess capacity of key components of CFT frames; 3) use the quantified assessments of demand and capacity for all design parameters to formulate a reliability-based performance-based design methodology for composite structures, specifically CFT frames. These frame analyses and the performance-based design methodology together will yield valuable information required for understanding the seismic demands of composite CFT frames, for providing a first step towards comprehensively improving composite CFT design specifications, and for accelerating the trend to use CFTs in common frame structures.